1994 Aspen Winter Astrophysic Conference; Aspen, Colorado; January 3-7, 1994

9321772 Appelquist One week of the Aspen Winter Astrophysics Conference in January 1994 will be devoted to the topic "Millisecond Pulsars - A Decade of Surprise". The goal of the meeting is to survey the latest developments in the study of neutron stars with millisecond rotation periods. Included are searches for new objects, models of their origin and evolution, and the impact of observations of these stars on other fields. ***